Dissertation Research/Economic Brokers and Petty Commodity Traders: Street Vending in Bogota, Colombia

In this project a graduate student in anthropology will conduct ethnographic research in Bogota, Columbia. The researcher will interview street vendors, observe street vending, and get information from government agencies and vendor organizations. The project will investigate the nature of the relationships between street vendors (the "informal" economy) and public and private officials and others in the "formal" economy. The research will seek to explain how street vending persists and flourishes through its relationships with complementary economic institutions, and how vendors are able to amass capital. The research will analyze how social position, access to resources, and the use of personalized relationships favor capital accumulation by vendors. Vendors will be chosen from three districts of the city: a central location, a contraband market in a poorer section, and a middle-class market for luxuries. This project is important because the relation between the formal and informal economies of societies is a critical issue of modern development. The informal sector is growing and dynamic in most countries of the world, yet most economic theory pertains to formal sector activity. This project should help us understand these relationships in one developing country.